Research and Curriculum Development in Intelligent Transportation Systems

Abstract EEC-9527519-University of Massachusetts-Amherst, Dr. John Collura, Principal Investigator This award provides funding to the University of Massachusetts-Amherst for the support of a Combined Research-Curriculum Development (CRCD) Program entitled, Research and Curriculum Development in Intelligent Transportation Systems. The CRCD program emphasizes the need to incorporate exciting research advances in important technology areas into the upper level undergraduate and graduate engineering curricula and stimulates faculty researchers to place renewed, equal value on quality education and curriculum development. The primary objective of this proposal is to integrate past and ongoing research results in the area of Intelligent Transportation Systems (ITS) into upper level undergraduate and graduate level engineering curricula at the University of Massachusetts-Amherst. This will better prepare students at the undergraduate degree level to help plan design, operate, and evaluate ITS systems while also teaching students at the graduate level to participate in system development and ITS research.